p-adic Cohomology and Applications

Abstract for the award of Kiran Kedlaya DMS-0400272

p-adic analysis, initiated by Hensel at the turn of the last century,
seeks to bring the "continuous" techniques of calculus to bear on
"discrete" problems in number theory. We study applications of p-adic
analysis in arithmetic algebraic geometry; a typical problem is to count
solutions of systems of polynomial equations. We work on one hand on
improving our theoretical understanding of this problem, and on the other
hand on developing practical algorithms for treating important special
cases. Some of these cases occur in applications to cryptography, error
correcting codes, and other areas of computer science.

More specifically, we are developing Berthelot's rigid cohomology in
parallel with the older theory of etale cohomology, which is better
understood theoretically but ill-equipped for explicit computations.
One long-term goal is to extend Lafforgue's work on the function field
Langlands correspondence to p-adic sheaves (crystals). In another
direction, we are investigating algorithms for computing in p-adic
cohomology, which may have mathematical applications on top of
the practical ones mentioned above.